Elementary Particle Physics and Neutrino Astronomy

This three-year grant supports the work of Roy Weinstein and collaborators at the University of Houston on the "Large Volume Detector" (LVD) underground experiment in the Gran Sasso, in Italy. This experiment is operated by an international collaboration in a deep-underground facility constructed by the government of Italy. The experiment will have many goals. Several of the goals are: (1) to search for neutrinos from supernova explosions; (2) to search for oscillations of atmospheric neutrinos; and (3) to detect solar neutrinos. The experiment will be somewhat different from previous underground neutrino experiments. The apparatus will be sensitive to neutrinos of lower energies and so will be able to answer new questions in the areas of elementary particle physics and astrophysics.